Mathematics and Marine Science Program

*** 9552943 Meeker The University of New Hampshire will initiate a three-week, summer residential, Young Scholars project for 25 talented students entering grade 10 from New Hampshire and Maine. The project integrates probability, statistics, and computer technology within a marine science experience focused on a field-based study of the Great Bay estuarine system in coastal New Hampshire. Students engage in classroom lectures and discussions, field trips, laboratory and research activities to gain an understanding and appreciation of scientific techniques. ***